CRUI: Juvenile Blue Crab Use of Low Salinity Areas: Costs and Benefits

Blue crabs play a key role in regulating shallow water communities and support one of the most important fisheries along the eastern coast of the United States. Juveniles represent a critical stage in blue crab life history and are dependent on nursery habitats for survival. Work recently conducted indicates that one potentially important nursery habitat includes low salinity areas of estuaries. These areas may provide a benefit of lower predation rates. However, the osmoregulatory demands associated with living in low salinity may also produce energetic costs that may have consequences for growth and survival. The potential benefits of using low salinity habitats through a combination of distribution and tethering studies will be tested. Potential for osmoregulation, relative energetic costs associated with osmoregulation and consequences for juvenile growth will be assessed through physiological, molecular and microscopy approaches. The results of this research will have implications not only for understanding the life history dynamics trade-offs in other estuarine crustaceans. The proposed research will rely heavily on undergraduate involvement and will aid in establishing a research methods course sequence.